Student Support for Second North American Perpendicular Magnetic Recording Conference (NAPMRC 2003)

The North American Perpendicular Magnetic Recording Conference (NAPMRC) is designed as a highly interactive focused meeting with the purpose to promote accelerated implementation of perpendicular recording. Following the highly successful 1st NAPMRC convened on January 1-9, 2002 in Miami, FL, the 2nd NAPMRC will be held in Monterey, California on January 6-8, 2003.

This proposal will subsidize the registration fee for students from U.S. institutions. Support from NSF will ensure that the program is open to the widest range of interested applicants from the U.S. universities.